The Development of an Integrated Eye Tracker, Driving Simulator and Virtual Acoustic Environment

Fisher With support from the National Science Foundation and industrial collaborators, Dr. Donald Fisher and his research team will develop a state-of-the-art video based eye tracker, a research level driving simulator and a virtual acoustic environment which are fully integrated with one another. The system consists of an advanced eye tracker to be developed by Applied Sciences Laboratory, a driving simulator developed by Illusion Technologies Incorporated and an acoustic environment which mimics or simulates the reverberant characteristics of an automobile. The planned system would supersede a current instrument which makes use of a "moving window" paradigm, and which permits a wide range of research in psycholinguistics, reading comprehension, visual scanning and scene comprehension. The research and research training that will be undertaken with the level driving simulator and sound equipment will nicely complement and extend the ongoing laboratory activities. It would, for the first time, allow the study of the basic cognitive processes in complex, dynamic displays using window and boundary paradigms that have been successfully employed in more simple situations. The range of potential behaviors to be examined will also expand. Researchers and psychology and communications disorders can use the eye and head tracking equipment to study sound localization and detection. Exercise scientists can use detailed information on driving responses to study the slowing of motor processes with advancing age. Increased understanding of visual scanning of complex dynamic displays and dynamic decision making in realistic, highly stressful conditions will also be possible. On a more practical level, the basis research proposed will provide a first step in the development of in-vehicle collision avoidance devices.